Mechanical Evaluation of a Metallic Reentrant Structure

9510512 Friis This project is a Research Planning Grant made to help increase the number of new women investigators participating in National Science Foundation (NSF) research programs, and to facilitate preliminary studies and other activities related to the development of competitive NSF research proposals. The aims of the research planning project are to: 1) establish a firm working relationship with a manufacturing company that produces metal tantalum foams, 2) work with that company to develop a technique of forming metallic reentrant structures directly in manufacturing, and 3) do preliminary elastic property and fatigue toughness characterization of the metallic reentrant structure as a function of transmission compression ratio. Characterization of the reentrant structure as a function of compression ratio will facilitate design of devices that incorporate this structural material. The preliminary data and proof of testing techniques will serve as a solid foundation for a subsequent research proposal for full characterization of the tantalum reentrant structure. ***